AF: Small: Computational Complexity Lower Bounds: Time, Space and Communication

While computers have revolutionized our world, the resources
required to perform computational tasks are poorly understood.
Developing a mathematical theory of computation is crucial in our
information age, where computers are involved in essentially every
part of our life. Computational complexity, the study of the amount
of resources needed to perform computational tasks, is essential
for understanding the power of computation and for the development
of a theory of computation. It is also essential in designing
efficient communication protocols and secure cryptographic protocols,
and in understanding human and machine learning. Proving lower
bounds for the resources required by different computational
models, and for different computational tasks, is among the most
exciting, most challenging and most important topics in theoretical
computer science. The project will study computational complexity
lower bounds, focusing on two research directions: Lower bounds
related to learning; and, studying the relative power of quantum
and classical computational models.

In more details, we will focus on the following directions. (1)
Memory-Samples lower bounds for learning: memory/samples lower
bounds for online learning algorithms is a very exciting research
direction that has been studied in a line of recent work. For
example, it was proved that any algorithm for learning parities
requires either a memory of quadratic size or an exponential number
of samples. The project will further study memory/samples lower
bounds for learning and their relations to other topics in
computational complexity. (2) The relative power of quantum and
classical computational models: The project will study gaps between
quantum and classical complexity in various models. In particular, it
will investigate separations between quantum and classical communication complexity,
as well as the relative power of quantum and classical algorithms
in the context of memory/samples trade-offs for learning. (3)
Circuit complexity lower bounds related to learning: The amazing
success of machine learning, and in particular deep learning,
motivates a study of closely related computational models. The
project will study linear-threshold circuits and other models of
circuits that are related to learning.